Vertical Clingers and Leapers - A Biomechanical and Allometric Analysis

The primary goal of this research is to better understand the relationships between locomotor behavior, body size and the structural adaptations of the musculoskeletal system in a group of highly endangered primates. The investigators will study a unique positional behavior of prosimians, "vertical clinging and leaping." It is characterized by clinging postures on and progression by leaps from vertical substrates. Over the years, a great morphological diversity has been demonstrated within the locomotor category -- much of which appears to be size related. Corresponding behavioral differences remain to be explored, in large part because adequate data on the larger-bodied representatives are not available. This project will analyze locomotion and postures of larger-bodied vertical clingers and leapers. Data collection will include videotaping and "force pole" recordings of take-off and landing forces. A theoretical biomechanical framework will serve to elucidate the form-function interface and generate testable hypotheses about morphological adaptations of different-sized animals to this locomotor mode. We expect the study to contribute to a better understanding of the morphological diversity within the locomotor category, including the fossil record of locomotor design.